AGEP/HRD SGER: enhancing the Cyberinfrastructure for National AGEP Integration: Rapid Prototyping and Evaluation of a Pilot NY AGEP Collaboratory

Introduction: With the goal to address the severe national shortage in the number of
domestic members of underrepresented populations (i.e., African Americans, Hispanics,
American Indians, Alaska Natives, Native Hawaiians or other Pacific Islanders) pursuing
doctoral degrees in the STEM disciplines (Science, Technology, Engineering and Mathematics),
the Alliances for Graduate Education and the Professoriate (AGEP) Program was initiated by the
NSF in 1998. During the last 7 years, the program has grown from few alliances in 1998 to 27
AGEP alliances nationwide in 2005. While these AGEP alliances are required to collaborate
amongst themselves in order to better fulfill the program goals, transaction costs and financial
constraints prevent them from collaborating more effectively on a regional or national basis.
This limitation may hinder the full potential and growth of the AGEP Program because
individual alliances may miss out on opportunities for the identification and sharing of best
practices and lessons learned from other AGEP alliances. The purpose of this project is to
explore the degree to which the strategic deployment of cyberinfrastructure can broaden and
deepen collaboration amongst AGEP alliances in NY State, as a pilot study, and to lay the
empirical foundation for a larger proposal to strengthen the national integration of AGEP
alliances.
Intellectual Merit: To accomplish these goals for enhanced collaboration and sharing of
best practices and resources throughout the national AGEP community, we have designed our
study to be implemented in two phases: The focus of Phase One will be to build a pilot
collaboratory for the emerging partnership of the New York AGEP alliances. This pilot NY
AGEP Collaboratory will serve as the prototype of a National AGEP Collaboratory that may be
proposed after evaluation of the pilot data. In Phase Two of the proposed project, we will
expand membership in the pilot collaboratory to the remaining three AGEP alliances on the East
Coast. Again, this pilot East Coast AGEP Collaboratory will help us to learn valuable lessons as
we plan for a proposed National AGEP Collaboratory project. Guided by literature on the
development of Cyberinfrastructure and Collaboratories, we propose to study the three
overarching domains around collaboratory practices. We characterize these domains as: (1)
people-to-people; (2) people-to-information; and (3) people-to-facilities. Each of these domains
is critical to the needs of the AGEP alliances. Formative and summative evaluation of the pilot
study will be undertaken to provide the analysis that will help in making decisions about the
subsequent phases of the project, leading up to the national AGEP Collaboratory. Areas that will
be evaluated include administrative capacity, planning and research, affiliate capacity building,
and enhancing outreach capacity.
Broader Societal Impacts: In addition to the project's direct impact on the participating
AGEP alliances in terms of building their capacities and increasing their efficiency to facilitate
the achievement of their objectives to support the development of more members of
underrepresented populations achieving the doctorate in the STEM disciplines and entering the
professoriate, the project has broader impact at regional and national levels. The universities and
their student populations in general will benefit from increased opportunities for collaboration
amongst the participating universities, including brown bags, courses, seminars, and research
opportunities. These technologies will make it easier to engage local communities in research
activities where relevant. Nationally, the lessons learned form this project can be applied not
only to the future AGEP collaboratory, but to other loose networks and alliances of
interdisciplinary and multi-institutional actors.